Accelerated Durability Testing of Gas Turbine Coatings
Emphasizing Oxide/Metal Interfaces

9872338
Meier
The goal of this project is to develop accelerated testing methods for cyclic oxidation tests of alumina based oxide coatings and thermal barrier coatings of interest to the gas engine industry. Emphasis will be on a study of the fundamental mechanisms which control oxide adhesion by imaging oxide and interface structures, developing mechanics models of interface decohesion, and by measuring stress and toughness of coating systems as functions of high temperature exposure. The project will involve materials students at the University of Pittsburgh and mechanics students at Carnegie Mellon University in a joint effort on oxidation mechanisms and the mechanics of thin films.
***